Scientific Computing Research Developments for the Mathematical Sciences

9508285 Hagstrom The Department of Mathematics and Statistics at the University of New Mexico will purchase hardware and software to better equip its research computing laboratory. The laboratory will be used by several ongoing research projects in pure and applied mathematics including: 1. Cohomology and Geometries Associated to the Sporadic Simple Groups 2. Computational Analysis of Wave Propagation Problems with Multiple Scales 3. Multiphase Flow and Interfaces